Dissertation Research: Linking Intra- and Inter-Host Parasite Population Dynamics to Natural Populations of Poecilia reticulata and Gyrodactylus turnbulli

9972723
Wilson and Gilchrist
Duke University

Although the theoretical importance of parasites on host population dynamics has been well established, most models ignore the dynamics of a parasite infections within a host. The importance of parasite population dynamics within a host is generally not understood. This project builds on a basic model of within-host parasite population dynamics to evaluate different modes of parasite transmission. The very nature of most parasitic infections makes empirical ecological studies of host-parasite interactions difficult. This project links tests of these theoretical approaches with a carefully chosen empirical system. This overall approach will lead to an understanding of the role that within-host parasite population dynamics play in natural populations.